The Molecular Organization of Chlorophylls and Carotenoids in Photosynthetic Membranes

Recently developed electrophoretic and FPLC procedures enable each caroteno-chlorophyll-protein in a green plant, alga, cyanobacterium or photosynthetic bacterium to be purified without essentially displacing any pigment molecules or protein subunits that are present in the component in situ. These procedures are to be used in the proposed research. The specific questions to be answered are how are the approx. 250 chlorophyll and carotenoid molecules and their associated proteins, which constitute most of the antenna of photosystem II, organized so that they absorb and efficiently transfer light energy to the photochemical reaction enter. Similarly, how are the approx. 150 pigment molecules in a purple bacterial photosystem arranged at the molecular level as well. %%% The goal of the research is to contribute to basic knowledge about photosynthesis: specifically to energy trapping and migration in the antenna; antenna composition and structure; molecular organization of chlorophyll and carotenoid; and, assembly and disassembly of the photosynthetic apparatus. The approach is a combination of biochemical, biophysical, and molecular biology studies. Emphasis will be on those membrane components that contain chlorophyll and carotenoid molecules. These studies should provide new information on the organization of light-capturing proteins in diverse organisms.